Mathematical Sciences: Summer Conference on General Topologyand Applications

This project will support a conference entitled Summer Conference on General Topology and Applications. It will be held June 14-16 at the C.W. Post Campus of Long Island University. The goals of the conference are (1) to facilitate communication and collaboration among topologists from a wide geographic area, (2) to improve communication between topologists and mathematicians in related fields, (3) to bring to the participants the leading researchers and latest developments in the field, and (4) to expose advanced graduate students to the excitement and intense research activity of this conference. The principal speakers are A.V. Arhangel'skii, B. Banaschewski, W.W. Comfort, Gruenhage, B. Mandelbrot, and S. Watson. The proceedings of the conference will be published by Marcel Dekker.